Multiscattering and Absolutely Continuous Spectrum

The main objective of this research is to study random and
deterministic differential operators with mixed spectrum
containing a dense pure point spectrum (corresponding to
localized states) and an absolutely continuous spectrum
(corresponding to extended states). According to the classical
Anderson conjecture, both types of spectra coexist for random
Schrodinger operators with "small" disorder. This conjecture has
not been proved yet in a rigorous fashion. The award will support
research on a rigorous proof of this conjecture when the disorder
is not necessarily small in magnitude, but instead sparsely distributed.
The awardees will also study related non-linear evolution problems
in suitable classes of sparse functions.

The problems under consideration concern the behavior of quantum
particles or waves in a cloud of localized and randomly distributed
obstacles. The interaction of a particle with each individual obstacle can be
described in terms of classical scattering theory, while the global
picture is a subject of multiscattering analysis. There are two
different scenarios which are not necessarily mutually exclusive:
either particles or waves are trapped by the system of obstacles,
or they can propagate to infinity. This research will investigate which
scenario holds under what circumstances, in the case of very thinly
distributed obstacles. This theory is essential to an understanding
of wave propagation in disordered media, such as crystals with
randomly distributed microdefects. A concrete application is in
quality control of silicon surfaces using lasers.